RIA: The Application Oriented Fault Tolerance Paradigm for Multicomputer Systems

This project focuses on identifying problem classes applicable to the Application Oriented Paradigm, a new class of fault-tolerance design method. In this approach, the applications programmer is presented with a Reliable Parallel Processing Model, which functionally consists of an application level constraint predicate for constraining and detecting faulty behavior, a configuration control layer for operation in the presence of failed components, and a distributed diagnostic basis. The applications programmer must only be concerned with the generation of an abstraction of each individual program's salient reliability features. This task is performed in concert with each phase of the Software Life Cycle beginning with the specification phase. The methodology is applied to the design of parallel software for massively parallel multicomputer networks, which can function in the presence of both hardware and software errors. Issues addressed include system issues and configuration control, application applicability, automated constraint predicate generation, and fault detection and recovery. Fault tolerance is of paramount importance in large distributed multicomputers. The design of a systematic method for developing reliable control systems in massively parallel multicomputer networks in the presence of both hardware and software error is very important. This research develops a systematic method and demonstrates its applicability on applications in the design of massively parallel systems. Support is strongly recommended